Scattering theoretic methods in the mathematics of disordered media

Research will be done to establish the phenomenon of localization
for physically relevant models of disordered media where existing
methods have widely failed in the most relevant case of dimension
three. Particular models to be investigated are the
Bernoulli-Anderson model, the Poisson model, and the Random
Displacement model. The main obstacle to overcome is the lack of
monotonicity properties for these models, which causes significant
differences to the more successfully studied Anderson model. In
previous work, the PI and his collaborators have shown that
methods from scattering theory can be used to establish
localization for one-dimensional non-monotonic models. These
methods will lead to further results in one dimension and provide
new tools in higher dimension such as using the total scattering
cross section of single sites to identify energies where extended
states exist. Some related goals are to establish Wegner estimates
for the eigenvalues of finite box hamiltonians and Lifshitz tail
asymptotics for the integrated density of states in the above
models, as well as to understand the effects of correlations
arising from long range single site scatterers.

The mathematical theory of disordered media aims at understanding
the spectral and scattering theoretic properties of irregular
solids such as, for example, crystals with impurities, alloys,
materials with lattice deviations and amorphous media. Different
models of random operators are used to describe the various types
of disorder. This provides a mathematical framework to decide on
conductivity properties: If localization of states can be
shown, then the solid is electrically insulating, while the
existence of extended states characterizes a conducting material.
The PI's research aims at establishing these properties for models
of high physical relevance, which have so far resisted a rigorous
mathematical treatment. For example, localization properties are
not yet understood for realistic models of alloys. Ideas from
statistical physics and solid state physics will be combined with
methods from scattering theory, spectral theory and harmonic
analysis to make progress.